K-Types and Harmonic Analysis on p-Adic Reductive Groups

Abstract
Kim

The PI will study the theory of types, and their applications in Harmonic
analysis on p-adic groups. First, jointly with Jiu-Kang Yu, the PI will
construct K-types in certain tame case and show that they are types in the
sense of Bushnell-Kutzko. These types have Hecke algebras associated to
them. In the second project, the PI will study the structure of
these Hecke algebras. Lastly, the PI will consider various applications of
these K-types in Harmonic analysis. Recent progress in the theory of
types suggests that the Harmonic analysis on p-adic groups can be
completely understood via harmonic analysis on the associated Hecke algebras.
These projects are necessary steps towards advancing the theory of types.
In the tame case, one can expect them to lead to a significantly improved
understanding of representation theory of p-adic groups, and
they should also prove useful in the more general situation.

Representation theory is a major mathematical technique for exploiting the
presence of symmetry. For example, the structure of the hydrogen atom, one
of the fundamental computations in quantum mechanics, is controlled by
representation theory. Another way of thinking about representation theory
is as a generalization of the theory of eigenvalues and matrices that many
people see in a college course on basic linear algebra. The investigator
studies certain infinite groups of infinite dimensional symmetries.
This project addresses important questions in representation theory,
which potentially has applications to number theory.